Blue-Green Vertical Cavity and Microresonator Semiconductor Lasers

9508401 Nurmikko The goal of this research is to initiate the development of a new generation of blue-green semiconductor lasers, based on vertical cavity and microresonator devices. The lasers are based on wide bandgap II-VI semiconductors which have recently seen a brisk pace of development in the conventional edge emitter geometry. The principal investigator's group has been a part of these advances and has achieved considerable experience in the physics and engineering of these quantum well heterostructure devices, expertise that will be of direct benefit in the proposed research. For example, spectroscopic characterization of gain, application of bandgap engineering techniques for electrical contacts, nanostructure fabrication techniques, and low temperature device processing methods have been accomplished. From applications point of view, the emergence of compact blue-green lasers has significant potential impact on optical storage, display, and printing technologies. ***